Lab Experiences for Undergraduates in Developing Materials, Structural Components and Structural Assemmblages in Small- Scale Models

9322343 Kukreti This Research Experiences for Undergraduates project will establish a three year site for undergraduate research (REU Site) in "Structural Engineering" with a special focus on techniques to study the "Development of Enhanced Materials, Structural Components and Structural Assemblages Used for Small-Scale Modeling in Seismic Performance Evaluation Studies" in the School of Civil Engineering and Environmental Science (CEES), University of Oklahoma (OU). ***